Organic Carbon in Marine Sediments: Combustion Oxygen Demand Instrument Construction, Testing, and Application

This project will construct a combustion Oxygen demand instrument. The automated instrument will provide a relatively inexpensive analytical tool for the study of the amount of oxidizable material in marine sediments and will be used in studies of carbon sequestration in a variety of marine environments.